Gender Differences in Careers of Science, Engineering, and Mathematics Faculty

National Academy of Science
SRS-0336796

In response to a formal mandate from Congress, the Committee on Women in Science and Engineering (CWSE) and the Committee on National Statistics of the National Research Council will conduct a study to assess gender differences in the careers of science, engineering, and mathematics (SEM) faculty, focusing on four-year institutions of higher education that award Bachelor's and graduate degrees. The study will build on the Academy's previous work and examine issues such as faculty hiring, promotion, tenure, and allocation of institutional resources including (but not limited to) laboratory space.